Preconditioned Interative Methods for Large Linear Systems

The numerical solution of large sparse linear algebraic equations
represents a very significant portion of scientific computing.
Such linear systems arise from the discretization of partial
differential equations as well as in many other contexts, such as
the numerical solution of nonlinear equations and optimization
problems. Over the past two decades, significant progress has
been made in the development and analysis of iterative Krylov
subspace methods. This project will address a number of theoretical
and practical issues associated with the use of Krylov space
methods for solving linear systems.

One of the large remaining open problems in this field is the
development of a clear method of choice for nonsymmetric problems.
Analysis of nonsymmetric Krylov space methods will be a component
of this project. It is also important to understand the effect of
rounding errors on the performance of both symmetric and nonsymmetric
iterative methods and this topic will also be addressed. Finally,
from a practical point of view, it is most often the preconditioner
that has the greatest effect on the performance of an iterative
method. Ideas developed in this research will be applied in
problems involving neutron transport and ground-water flow simulation
to test their practicality. Parallelism will be a consideration
in all of the work.